Sharing the IMPACT ILP Compiler Technology with US Researchers

The rapid proliferation of new instruction set architectures that support instruction-level parallel processing has created great compiler and microarchitecture research opportunities. The IMPACT compiler, with its advanced features such as predicated compilation, instruction level parallelism optimizations, compiler engineered speculation, profile-based optimizations, advanced machine description facilities, scheduling frameworks for resource sensitive code optimizations, and pointer-based dependence analysis and tracking facility, has become a premier compiler technology base for major U.S. companies as well as academic researchers. This software capitalization project enables the use of IMPACT's state-of-the-art compiler framework by a large number of researchers. This will be accomplished by enhancing existing documentation and developing new documentation and tutorials, further strengthening the software interfaces, building and maintaining a web-based support infrastructure, and making the software as stable as possible through the aggressive use of a regression-test environment and timely response to users' bug reports. This project's software and documentation will be released in several phases over two years and the end product will be a high-quality and readily-available compiler environment that supports a wide variety of advanced instruction-level parallel processing research.